Capacity of Communication Channels with Memory

The principle investigator (PI) proposes a program of basic research in information theory. The topics include: 1. information capacity of the mismatched Gaussian channel with feedback; 2. coding capacity of the mismatched Gaussian channel and development of coding-decoding algorithms; 3. information capacity and coding capacity of non-Gaussian channels; 4. information and coding capacity of partially-known channels, and development of coding-decoding algorithms; and 5 modeling and analysis of channels subject to jamming. The work proposed is for channels of a general nature. However, the emphasis is on channels with memory.